Valuation and Management of Tropical Forests

The purpose of this research is to bring biological and geological relationships into the structure of an economic model for the valuation and management of tropical forests. The economic model is grounded in theory and incorporates recent developments in the modeling of dynamics and decision-making under uncertainty. The project's application to a specific planning problem will demonstrate the importance of this multidisciplinary approach to the complex issues surrounding tropical deforestation and resultant global change and loss of genetic diversity. The first part of the project will develop a theoretical model for the management of tropical forests that address some special constraints and uncertainties associated with their use. Specifically, uncertainty, irreversibility, and spatial relationships modify traditional management schemes to reflect the character of tropical management issues. The inclusion of spatial interactions between plots allows the model to address the complementary issues of minimum habitat size, reforestation, and externalities. The second part of the study involves an application of the model to a land planning case in Thailand. Data collected to describe the benefit flows from use options and the types of biological interactions across plots will be inserted in a computer algorithm that will solve the nonlinear programming problem for the Thai data. The planning model will determine spatial and intertemporal allocation patterns among a group of land users.